Ultrafast Spectroscopy of Bulk and Microstructure III-V Semiconductors for 2-5 um Diode Lasers, Detectors, and Modulators

9406680 Boggess This proposal focuses on the application of ultrafast optical techniques, based on a broadly-tunable femtosecond optical parametric oscillator, to the measurement of hot carrier relaxation, optical nonlinearities, and carrier transport in GaInAsSb/A1GaAsSb quantum wells and related ternary and binary heterostructures. The extent to which band structure engineering, through both strain and quantum confinement, influences these properties will be explored. Pump-probe spectroscopy, transient grating techniques, and time-resolved photoluminescence upconversion techniques will all be employed. The semiconductor samples to be used in this research will be provided by The Hughes Research Laboratories (HRL) as part of a long-standing, broadly- based collaborative program. While the ultimate goal of these studies is to enhance the knowledge base required to improve mid-IR optical and optoelectronic devices, it is emphasized that the proposed measurements will provide information related to the fundamental physics of this largely unstudied materials system. Specifically, these measurements will provide insight into carrier energy relaxation through both inter- and intravalley electron- phonon scattering, the relationship between the engineered band structures and nonlinear susceptibilities, which in turn are related to dipole transition matrices and energy band separations, and the fundamental scattering processes that determine the nature of both in-well and cross-well carrier transport in Sb-based multiple quantum wells and superlattices. ***